Mathematical Sciences: Markov Processes in Population Genetics

The principal investigator will continue his work on Markov processes in population genetics. Several specific problems will be studied. For example, the investigator will study the two- locus diffusion model of Ohta, incorporating gene conversion. Another example is the coupling of the coalescent (genealogical) and diffusion versions of the infinitely-many-neutral alleles model.